GOALI: Influence of Transient Nutrient Environments on the Morphology and Rheology of Filamentous Fungal Broth

The objective of this project is to develop a fundamental
understanding of how changes in a fungal cell's local nutrient
environment can affect growth and branching. The natural tendency
of fungal cells is to show varied branching patterns in the
presence of different nutrient concentrations. This will be
exploited as a framework to understand how the external
environment alters fungal morphology, and hence rheology. This
project is a university-industry collaboration which involves Novo
Nordisk BioChem North America, a leading enzyme manufacturer.
This company is to provide an industrially-relevant fungal strain,
Aspergillus oryzae, which produces the enzyme alpha-amylase. In
addition, the company will be an active participant in the
research. The specific aims of the project are to: (1) quantify
transient nutrient environments (TRE's) in an industrial-scale
fungal fermentation, and determine how TNE's are affected by broth
rheology, (2) characterize how TNE's and certain drugs
(paramorphogens) alter the degree-of-branching in individual
fungal mycelia, (3) determine how the degree-of-branching in
individual mycelia affects clump morphology, and how this affects
broth rheology, and (4) determine how TNE's affect clump
morphology, broth rheology, and protein expression.